Conference: Patterns of Biological Organization on October 8-11, 1992 in Rensselaerville near Albany, New York

This award will support participants costs to a conference in computational biology: Patterns of Biological Organization. The conference will be in Rensselaerville, New York on October 8-11, 1992. The topics to be covered include sequence analysis an secondary structure, tertiary structure prediction, applications of structure prediction, recognition and assembly, and development. The award will foster interdisciplinary research and will provide support for junior researchers to attend this conference.